Fall Workshop on Computational Geometry 2009

2009 Fall Workshop on Computational Geometry

Computational geometry has rapidly emerged as a field of intense
research in computer science and many related disciplines. Since many
of the computations associated with both real and simulated physical
systems are geometric in nature, research in computational geometry
has been fueled by applications in numerous fields, such as computer
graphics, geometric modeling, molecular biology, sensor networks,
engineering design, robotics, machine vision, data mining, and
statistics, to mention just a few. All of these areas are on the
forefront of current research activity in computational geometry.

The Fall Workshop in Computational Geometry will be organized at the
Department of Computer Science of Tufts University, Medford, MA,
November 13-14, 2009.

The aim of the workshop is to bring together researchers from academia
and industry, to stimulate collaboration on problems of common
interest arising in all areas of geometric computing. The proximity
to many universities in the Northeast will facilitate student
involvement; requested funding is targeted particularly at making the
workshop accessible to students, both graduate and undergraduate.

Following the tradition of the previous workshops on Computational
Geometry, the format of the workshop will be informal, extending over
two days, with several breaks scheduled for discussions. There will
be a few (three to four) invited speakers, selected to speak on topics
of mutual interest in computational geometry, computer graphics, and
robotics. A key focus of the workshop will be an Open Problem Forum in
order to promote a free exchange of questions and research challenges.

The workshop will have broader impact in its education and involvement
of students and young researchers, who will be exposed to the latest
developments in the field and will be given opportunities to present
talks and posters on their own work. The workshop is designed to
promote collaborations between computational geometry specialists and
other experts in mathematical sciences and related scientific and
engineering disciplines, in hopes of forming new alliances between the
field of geometric algorithms and the many application domains in
which geometric problems and issues arise.

Further information, announcements, and the workshop program will be
available on the workshop website:
http://www.cs.tufts.edu/research/geometry/FWCG09/